NSF/AFOSR Astronomy: Extending the Field of View of Adaptive Optical Telescopes based on Measurements of the Spatial Statistics of Turbulence and Post Detection Image Processing

AST-0123466
Roggemann, Michael C.

This work will develop and validate a technique to derive long exposure Point Spread Functions as a function of Field of View using on-axis wavefront statistics measured at the Advanced Electro-Optical System adaptive optics wavefront sensor. The technique will use existing models of the well-characterized turbulence profiles at the Maui site on Haleakela. This approach, if demonstrated successfully, may lead to a new technique that will be an alternative to the more expensive and complex Multiple Conjugate Adaptive Optics systems planned for the future. It promises to be a useful tool for the entire astronomy community studying extended objects.
***